A Study of Liquid Streams in Vacuum and Higher Pressure Environments (REU Supplement)

A study of the break-up of a liquid stream into droplets is to be continued. The work is largely experimental, and will explore break-up behavior driven by pressure oscillations induced in the flow nozzle, using amplitude modulation on a carrier frequency. Very low droplet speed dispersion can be produced this way. The effect of ambient gas pressure is to be investigated, as well as controlled drop collisions to produce novel liquid forms. Processing applications, such as ceramic precursors, spray coating, and net-form manufacturing will benefit from an increased ability to control the shape and dynamics of liquid drops.